SBIR Phase I: A Secure Biometric Personal Authentication System

This SBIR Phase I project will bring together research in biometrics and information systems by developing new techniques that learn and then continuously monitor a user's biometric features locally, freeing the information system from the task of managing identities or participating in the biometric authentication process. Combined with inexpensive methods for monitoring proximity and with strong encryption technology, the complete approach will enable more accurate and secure identification of when access should be enabled or disabled.

The proposed research has the potential to substantially change computer access and authorization procedures across a wide range of application areas including healthcare, banking, law enforcement, government services, etc. If applied to network services, the proposed technology can have a significant impact on the growing problem of identity theft, making it easier for companies to protect against unauthorized access to their services and information.